SGER: Exhibition: Speculative Data and the Creative Imaginary at the National Academy of Sciences to be held June 3, 2007-August 24, 2007 in Washington, DC.

The creative digital media exhibition Speculative Data and the Creative Imaginary:
shared innovative visions between art and technology will be held at the National
Academy of Sciences Gallery in Washington D.C., June 3 to August 24, 2007, as part of
the program for the Association for Computer Machinery (ACM) Creativity and Cognition
Conference, to be held June 13 to 15, 2007 in Washington D.C.. The exhibition will be
open for almost 3 months and in the summer, allowing ample time for adult, children,
and tourist visitors to view and interact with the exhibits.

The intellectual merit in this exhibition lies in the collection and dissemination of digital
media projects that illustrate premises that information technology (IT) is forming a
powerful alliance with creative practices in the arts and design to establish the exciting
new domain of information technology and creative practices (ITCP)set
forth in the 2003 National Research Council experts meeting and report Beyond
productivity: Information Technology, Innovation and Creativity and the Rockefeller
Foundation report New Media Arts | New Funding Models, (Mitchell, Inouye, and
Blumenthal, 2003; Jennings, 2000) Creative digital media works to be presented
demonstrate the contemporary practice of the merging of the creative practitioner and
the engineer - sometimes as a single person and other times as interdisciplinary teams
that exhibition participant Donna Cox, Director of Visualization from the National Center
of Supercomputing Application, calls renaissance teams. The term renaissance team is
descriptive of the CISE CreativeIT focus in supporting research that is done with groups
of people from different backgrounds in which the creative synergy is focused on a
specific context, problem, or perceived need resulting in new products, models, and
areas of research that transcend discipline specific methods of inquiry.

The broader impact of this exhibition is in having the exhibits available in a public space
for children and adults to visit and interact with.